CAREER: Verifying Threaded Software Using Resource Bounds -- An Approach Towards Dependable Concurrency

Software development is facing a paradigm shift towards ubiquitous
concurrent programming, giving rise to software that is among the most
complex technical artifacts ever created by humans. Concurrent programming
presents several risks and dangers for programmers who are overwhelmed by puzzling
and irreproducible concurrent program behavior, and by new types of bugs that elude
traditional quality assurance techniques. If this situation is not addressed, we are
drifting into an era of widespread unreliable software, with consequences ranging
from collapsed programmer productivity, to catastrophic failures in mission-critical systems.

This project will take steps against a concurrent software crisis, by
producing verification technology that assists non-specialist programmers
in detecting concurrency errors, or demonstrating their absence. The
proposed technology will confront the concurrency explosion problem that
verification methods often suffer from. The project's goal is a framework
under which the analysis of programs with unbounded concurrency resources
(such as threads of execution) can be soundly reduced to an analysis under
a small constant resource bound, making the use of state space explorers
practical. As a result, the project will largely eliminate the impact of
unspecified computational resources as the major cause of complexity in
analyzing concurrent programs. By developing tools for detecting otherwise
undetectable misbehavior and vulnerabilities in concurrent programs, the
project will contribute its part to averting a looming software quality crisis.